Mathematical Sciences: Research in Scattering Theory

This project will simplify a wave equation approach to harmonic analysis for symmetric spaces of negative curvature and extend a perturbation theory for the wave equation on hyperbolic manifolds. The new theory is aimed at applications to quotient spaces and hyperbolic manifolds with twist. This projects addresses fundamental mathematical questions with potential applications for physics and chemistry.